Life Over Time Exhibition

9254694 Kamien Field Museum of Natural History requests a $1,467,422 grant from the National Science Foundation in partial support of final planning and implementation of our LIFE OVER TIME exhibit and associated interpretive programs. This 21,000 square foot, permanent exhibit will provide our 1.4 million annual visitors with an understanding of basic evolutionary principles and an overview of the history of life from its origins through present. The exhibit will capitalize on Field Museum's extensive paleontological and biological collections. Developed in collaboration with the Museum's scientific staff, the exhibit development team and many outside consultants, the exhibit will attempt to address complex scientific issues in an informal learning environment. With a projected cost of $5,775,000. LIFE OVER TIME will open in 1994. ***